A Comprehensive Approach to Study Static and Dynamic Aspectsof Voltage Stability

9414131 Ajjarapu The objective of this project is to develop a unified frame work, which can be used to study voltage stability in the structure preserving power system model. This project will develop a systematic sensitivity analysis that identifies the areas, components and the parameters which are responsible for possible voltage collapse. The salient features of this project are: o Includes all the key dynamic devices are recommended by the recent CIGRE task force, o Continuation power flow with small signal dynamic formulation systematically traces the entire PV curve with dynamic stability information, o Realistic load increase and generation sharing scheme with relevant limits (in particular, it replaces the constant generator field and armature current limits), o Derivation of parametric sensitivity of algebraic variables in terms of parametric sensitivity of state variables. This basically gives the contributions of any parameter to a particular critical point, o Derivation of dynamic index that indirectly identifies the approaching critical point, o Classification of angle or voltage related problems, o Application of recent results of differential-geometric methods to reduce DAE's into ODE's to obtain efficient time domain simulations, o Practical significance of Node-Focus and 1:1 resonance. ***